Acquisition of Equipment for Electron Microscopy and Mechanical Testing of Materials

This projects provides instruments to be used in a new, campus-wide Institute for Materials and Advanced Processes (IMAP), to be housed in a new building to be constructed for the College of Mines and Earth Resources (COMER) at the University of Idaho. Faculty and students conducting research in IMAP will share these instruments with scientists in engineering and the biological sciences. Research on materials and materials processing has been identified as one of five research areas to receive special attention at the University of Idaho. COMER has the only Ph.D. granting materials program in the State of Idaho. Acquisition of these instruments will provide a major improvement in the research infrastructure being undertaken by IMAP and COMER.